Research Site in Sensors and Nondestructive Testing for the NSF-IUCRC at UMR: Repair of Buildings and Bridges with Composites

The proposed research site will be based at the University of Illinois - Chicago (UIC) and the R&D activities conducted will be to address the needs of the construction and manufacturing industry in the area of sensors and nondestructive testing technologies for repair of buildings and bridges with composites. The focus of the R&D activities will be development of technologies, manufacturing, implementation, and evaluation of the technologies developed.